A Discourse-Base Theory of Inference for Natural Language Processing

This project is concerned with developing a model of natural language understanding in which the inference machinery is based on discourse principles. In particular, a theory of text interpretation is develop. This theory computers an interpretation that conforms to plausible goals of a speaker and is most likely to be intended given the utterances than any other interpretation. The system is implemented by postulating an access/selection.integration paradigm. It is allowed for probabilistic considerations to be compiled into how elements are indexed, rather than exist as part of a run-time mechanism.